Workshops on Advanced Undergraduate Instruction in Experimental Physics

The workshop is for college instructors who teach upper- division experimental physics courses or who may be considering the development of such a course. The program facilitates the exchange of ideas about advanced physics experiments. There is be ample opportunity to discuss and perform the CSUH upper- division laboratory experiments. Equipment lists, data, and helpful hints are provided to assist in the development of similar experiments at the participants' home institutions.